Design of Robust Adaptive IIR Filters

Adaptive IIR filters can be useful in many signal processing and communication applications. However, a number of important issues concerning their robust design needs to be resolved before they can be widely used. This research addresses some of those issues. In particular, it deals with: 1) Exhaustive study of the properties of signed adaptive IIR filters, with special emphasis on the development of design tools and guidelines to ensure their robust performance. 2) Design of adaptive IIR filters which are time varying. Both slow and fast time variations will be considered. 3) Development of formal methodologies for designing error filters for a range of adaptive algorithms. The resolution of the above issues will contribute to the basic understanding of issues linked to good adaptive filter performance and lead to the development of design tools for a spectrum of applications.